EMSW21-MCTP: Alliance for the Production of African American Ph.D.s in the Mathematical Sciences

Member institutions of the Alliance for the Production of African American
Ph.D.s in the Mathematical Sciences. (APAAPMS) will carry out several
projects which will lead to an increase in the number of African Americans
who enroll in doctoral programs in the mathematical sciences as well as an
increase in the number of these students who obtain the Ph.D. The Alliance,
which consists of mathematics departments at four Historically Black
Colleges and Universities (HBCUs) together with departments in the
mathematical sciences at the three Iowa Regents universities, will expand
activities that they are presently undertaking in this area. The first of
these projects, the Alliance Scholar's Program, identifies eight students at
each participating Alliance HBCU and provides these students with close
mentoring by teams consisting of HBCU and Iowa Regents mathematics faculty.
A second project, the Alliance Summer Research Experience, provides an eight
week intensive research experience for Alliance Scholars as well as for
selected undergraduate mathematics majors from other institutions. A third
project, the Alliance Curriculum Project, provides for a careful analysis of
the similarities and differences of undergraduate mathematics courses taught
at participating institutions with an eye toward building seamless
transitions between undergraduate mathematics programs at Alliance HBCUs and
doctoral programs at majority institutions. A fourth project, the Alliance
High School Math Circle, involves Alliance Scholars in outreach activities
in the communities in which their schools are located.

Historically Black Colleges and Universities (HBCUs) enroll approximately
20% of all African Americans who attend four year undergraduate
institutions; they account for approximately 30% of all African Americans
who graduate from these institutions. Yet, with the exception of three or
four elite HBCUs with an established tradition of excellence, it is
extremely rare for graduates of HBCUs to enroll in doctoral programs in the
mathematical sciences or, indeed, in any doctoral program which leads to a
position in the professoriate. The reason for this is not hard to
ascertain: in fact, with few exceptions, African Americans were simply not
welcome among the ranks of the professoriate until quite recently. As a
result, HBCUs have tended to focus on producing professionals - doctors,
lawyers, teachers and religious leaders who have historically provided
critical infrastructure to a community at risk due to segregation and overt
discrimination. Less than 2% of all Ph.D. in mathematics awarded at US
universities each year are awarded to African Americans, a percentage that
has remained more or less stable over the last twenty five years. It is the
goal of this project to ease the transition to graduate programs in
mathematics for students attending HBCUs with an eye toward improving these
numbers.